International Conference on Advances in Scientific Computing; December 2009; Providence, RI

This purpose of this grant is to support an International Conference
on Advances in Scientific Computing at Brown University on December
6-8, 2009, to honor the memory of Professor David Gottlieb and to
review recent advances and explore exciting new directions in
scientific computing and related numerical solution of partial
differential equations and mathematical modeling for time dependent
problems and their applications. A notable feature of this
conference will be the emphasis on the crucial role of significant
mathematics in the design of advanced algorithms applicable to real
world problems. The conference will include invited speakers
ranging from numerical analysts with a strong interest in
applications, to applied and computational mathematicians to
engineers, physicists and scientists in other fields. The list of
invited speakers includes both very senior leaders in the field
and relatively young scientists. Represented in this list are both
women and minority mathematicians.

The proposed conference will be an effective venue for the exchange
of ideas among a diversified list of invited speakers and
participants. It will provide valuable guidance to young
participants to identify promising problems and application areas.
It is expected that this conference will push forward the research
in algorithm design and applications utilizing significant
mathematics to improve efficiency and effectiveness. These
algorithms have been and will continue to be widely used in
applications which are of national interest, including homeland
security (image processing and pattern recognizing), environment,
aerospace engineering, communications, energy science, and climate
modeling.